Model Project: Women in Science Project

Dartmouth College is implementing and testing certain strategies and activities to increase the number of women science majors and encourage them to pursue scientific careers. The target population is freshman women. Ninety internships are being carried out by first-year women in the natural sciences, mathematics, and engineering. This provides (1) an opportunity to work one-on-one with a science faculty member who can serve as a present and future mentor and role model; (2) "hands-on" laboratory work and first-hand experience with scientific inquiry; (3) an important scientific experience complementary to introductory science classes; (4) an experience which de-mystifies and de- mythologizes science; and (5) stipends to ensure the full participation of economically disadvantaged students.